Dynamics of Lava Domes

Balmforth
0072521
Lava domes are a common geological formation, and their
geometry sets them apart as one of the more simple types of lava
flow. Moreover, domes often have a relatively low aspect ratio
and evolve slowly. These observations can be used as ingredients
in building simple mathematical models of expanding and cooling
fluid domes; this proposal surrounds the development of such
models. In particular, lava is considered as a solidifying,
non-Newtonian fluid with strongly temperature-dependent material
qualities and an intrinsic yield stress. The wide array of
physical ingredients to the problem make the mathematical
modelling especially challenging. The project exploits the simple
geometry, slow evolution and low aspect ratio of the dome to
asymptotically reduce the governing equations to a simpler form.
The reduction furnishes "shallow-lava equations," in much the
same way that the "shallow-ice equations" are derived and
extensively used to model ice sheets and glaciers. Differences
arise because of the viscoplastic nature of silicic lava, and
because solidification creates a solid crust overlying the dome
that can contribute significantly to the balance of forces,
especially at the disk's edge. The mathematical approach are
complemented with an experimental one in which laboratory fluids
are used as analogue models of the lava. Both approaches are used
to explore the structure and evolution of the dome, partly with
the aim of learning more about how lava behaves as a fluid. For
example, some domes lose axisymmetry in what might be an
intrinsic morphological instability; this pattern formation
process is explored in that light.
Lava domes occur in many geological settings both on Earth
and on many other planets and moons of the solar system. These
structures form when crystal-rich silicic magma is pushed up
through vents onto roughly horizontal surfaces, and often occur
inside the craters created by volcanic eruptions. The shape of a
lava dome is especially simple in comparison to most other lava
flows. Hence, a first step in understanding lava flows in general
is to explore those domes. Moreover, despite their slow growth,
domes are natural hazards because they can be the setting of
violent and dangerous events: domes can rupture and release
confined gas in a pyroclastic outflow (an extremely hot and
fast-moving current of air and ash), or collapse at their
peripheries to create landslides and debris flows. The proposal
outlines a mathematical and experimental approach to the
modelling of lava domes. The purpose is to build models of the
dome's structure and evolution, and compare these models with the
real geological structures. By modelling the domes in this way,
more will be learned about how lava flows, and ultimately this
may provide insight into the hazards associated with them.